Conference on the Relationship of Feminist Theory to Ethicaland Value Issues in Organizational Science, October l989

The Studies in Science, Technology and Society program supports research that examines the structures and processes that influence the direction and use of science and technology in their social, political, and economic contexts. Ethics and Values Studies supports research that examines the social, professional and individual values and mutual obligations and responsibilities that arise in interactions of science, technology and society. This project addresses a very important issue for EVS ..whether and how assumptions in scientific disciplines contain unexamined ethical and value implications. For instance, notions such as "objectivity" and "subjectivity" may be used in scientifically unjustified ways, as a rhetorical and political strategy to advance a questionable assumption, method, or conclusion. This project uses new developments in feminist theory and thought as a means to examine these issues for sciences that study organizations and organizational behavior. Thirty six people including feminist scholars, organizational scientists, other social scientists and philosophers will gather for a three day conference, October 19. 21, 1989 at Alta Lodge in Utah. Prior to the conference, background papers will be distributed so that participants can come prepared to discuss gender assumptions in organizational science and their ethical and value implications for its direction and use. Products from the conference are expected to include published papers, a book and follow.up activities in professional societies and at their meetings. This project will contribute to advancing professional discussion of normative implications of unexamined research assumptions in organizational science. Since organizational science wishes to understand organizations better, and thereby to provide advice that can improve them, this conference can make an important contribution to these ends. The co.investigators are very well qualified; they have assembled a very impressive list of participants; results from the project are likely to be stimulating and useful. Institutional support is very, very good; the project budget is most reasonable. Therefore, support in the amount of $18,760 is recommended.